Center for Gravitational Wave Physics

This award supports the formation of The Center for Gravitational Wave
Physics. This Physics Frontier Center is devoted to development of
gravitational wave phenomenology: the physics and astrophysics that can
be explored by gravitational wave observations in all wavebands. It is
organized in three tightly-linked Major Research Components: i)
learning how to exploit the fundamentally new perspective that gravitational
waves offer, when compared to electromagnetic observations; ii) using
gravitational wave observations to test and contribute to the
understanding of strong-field, dynamical gravity; and iii) developing
modeling tools that combine detector and source science to provide
quantitative assessments of the ``science reach'' of advanced detector
designs. To achieve its goal of crystalizing the formation of this new
field, the Center functions as a National Facility with a substantial
visitor program; workshops, conferences and institutes devoted to
critical research areas where the focused attention of experts can be
expected to lead to breakthroughs or rapid advancements; and a
substantial, interactive interface to Center activities (seminar,
colloquia, workshops and research group meetings) for off-site Center
members and program participants. The Center's education program
emphasizes middle school children nationwide, through an affiliation
with the educational public television program "What's In The News?".
Three special programs form the core of its outreach program: to
women, through its participation in the Women In Science and
Engineering "Expanding Your Horizons" workshop (focused on grades 7--9)
and the Women In Science and Engineering Research mentoring program
(focused on first and second year undergraduate women), and to upper
division and graduate Hispanic students, through a special liaison with
the University of Texas, Brownsville.

The forthcoming generation of ground and space-based gravitational wave
detectors have unleashed exciting challenges and opportunities at the
interface of general relativity, astrophysics, and experimental
physics. The waves they will detect arise in strong, dynamical
gravitational fields, offering the first opportunities to test the
understanding of fully non-linear relativistic gravity.
Simultaneously, the observations' astrophysical implications are likely
to be novel, diverse and rich as they reveal the inner dynamics of
processes hidden from electromagnetic astronomy: e.g., the collision of
black holes in the center of a galaxy at high redshift. A new field of
physics --- gravitational wave phenomenology --- is thus poised to
emerge; however, lacking a tradition of large experiments,
gravitational physics lacks also a community of phenomenologists ready
to fully exploit the rich physics that the forthcoming observations
offer. The Center for Gravitational Wave Physics provides the
intellectual platform upon which existing expertise can be combined and
focused in a synergistic manner, crystallizing the formation of a
coherent, flourishing field that can fully realize the promise that
gravitational wave observations hold.